Mathematical Sciences: Dual Algebras of Operators and H-Infinity Control Theory

Li will use the concept of dual algebra to study the structure of bounded linear operators acting on infinite dimensional Hilbert space. In particular, the dilation theory of contraction operators, the invariant subspace problem, and the reflexivity problem will be considered for more general classes of operators and dual algebras generated by more than one operator. Li will also continue her study of control theory via the commutant lifting theorem. The general area of mathematics of this project has its basis in the theory of algebras of Hilbert space operators. Operators can be thought of as finite or infinite matrices of complex numbers. Special types of operators are often put together in an algebra, naturally called an operator algebra. These abstract objects have a surprising variety of applications. For example, they play a key role in knot theory, which in turn is currently being used to study the structure of DNA, and they are of fundamental importance in noncommutative geometry, which is becoming increasingly important in physics.